Collaborative Research: Active kinematics of lithospheric extension along the East African Rift

This 1-year, collaborative proposal is aimed at creating a community solution for tectonic velocities throughout the East African region. This region hosts the foremost example of continental rifting, where Africa stretches and splits into a two pieces, Somalia and Nubia in the East African Rift and beyond. Observations of the speed and pattern of continental break-up serve as a framework for other geosciences research on continental rifting, including in volcanology, petrology, geochemistry, and solid earth-climate interactions. They also offer the possibility of general results for the material properties of continents and the basic physics of how plates are formed, move, and change. Beyond the science, mapping patterns of surface deformation in East Africa informs earthquake and volcano hazard assessments and development of geothermal energy and water resources. A final contribution of this project is to foster data sharing and community model building among academic institutions throughout the U.S. and East Africa.

Specific initiatives we propose include: 1) formally combine GPS results from all available prior studies, along with any other available GPS data in the region for a fully self-consistent, continent-scale solution and to identify future needs and data acquisition strategies, 2) maintain existing geodetic assets developed over the past 6 years to extend GPS time series to reduce rate uncertainties, 3) extend or establish agreements (Memoranda of Understanding) with host-country partners (Ethiopia, Eritrea, Kenya, Tanzania, Mozambique, Zambia, and Malawi) for future joint initiatives, 4) measure a first epoch on nine campaign GPS sites in the Turkana Depression, and 5) develop a framework for data sharing and data product development to serve the broader African Rift scientific community.